SCC-CIVIC-PG Track A: MICOPP: Mobility Improvements to achieve transportation equity in Communities through joint Optimization of Public and Private community-based resources

Legacy industrial cities face numerous barriers to creating an equitable transportation system for all residents. Such is the case of Cleveland, Ohio, whose once vibrant public transportation system has weakened amidst decades of population loss, suburbanization, the relocation of job hubs away from the central city, and the concentration of affordable housing in neighborhoods marked by segregation and concentrated poverty. The confluence of these factors translate into transportation insecurity for low income households. The vision for this project is to leverage an existing community collaboration tackling the spatial mismatch (Paradox Prize) together with new technologies to take advantage of both public and community-based transportation assets and resources for advancing transportation access, affordability, and security in low-income urban communities. Building on existing data and scholarship, and using technologies to reduce cost and increase efficiency in the current system, this project will identify bottle-necks and inefficiencies in the system to guide new investments and resource allocations to dynamically foster better transportation access, connecting affordable housing and employment opportunities. Additionally, this project will work across transportation, artificial intelligence, social science, cyber-physical systems, smart city, and IoT applications, leading to better connections between low-income communities and access to jobs, affordable housing and wraparound services.

This project envisions a collaborative effort that will lead to the development of a hybrid transportation system called “Mobility Improvements to achieve transportation equity in Communities through joint Optimization of Public and Private community-based resources (MICOPP)”, with potential applicability to other urban communities challenged by sprawl and population decline. This planning process will involve active participation of all project stakeholders to make sure that the community needs, available resources, and user and systemic bottlenecks in accessing transportation choices are clearly identified. Using available data, artificial intelligence mechanisms will be developed to jointly optimize public and community-based transportation resources, given safety, availability and affordability constraints with the objective of maximizing the extent that the system serves the community. Appropriate metrics will be devised to evaluate the effectiveness of MICOPP and study the tradeoffs in investment decisions. This project is in response to the Civic Innovation Challenge program, Track A— Communities and Mobility: Offering Better Mobility Options to Solve the Spatial Mismatch Between Housing Affordability and Jobs—and is a collaboration between NSF and the Department of Energy.